Collaborative Research: High-Assurance Common Language Runtime

The proposed research focuses on the design and implementation of new
technologies for building high-confidence component software systems. The new
technology is directly relevant to improving security of commercial
virtual machines such as the Java virtual machine (JVM) and
Microsoft's .NET Common Language Runtime (CLR). The work concentrates
on three areas:

1. High-level specifications for low-level software. General and
flexible logic-based type systems (LTS) are being designed. The type
systems are derived from the Certified Binaries technology developed
by the authors and extend the scope, expressiveness and precision of
verification techniques used in current JVM and CLR implementations.

2. A high-assurance virtual machine. Using the authors Foundational
Proof-Carrying Code technology, higher-assurance, validated
implementations of the JVM or CLR infrastructure are being built. The
authors are engaged in technology transfer of their ideas to a virtual
machine being built at Intel.

3. Resource certification. New technologies for specifying,
composing, and verifying advanced properties such as resource bounds
on memory and network bandwidth are being developed. These
properties are crucial for safe and secure interoperation between
untrusted components in large-scale systems.